Special Project: Student Fellows Program at ACM Policy '98 Conference

9812800 Marc Rotenberg Association for Computing Machinery Special Project: Student Fellows Programs at ACM Policy 98 Conference This grant provides funding for twelve policy98 Student Fellows to attend and participate in the ACM Policy98 Conference. The conference provides a multidisciplinary forum planned to stress the contributions that computer professionals can make in policy-making by providing informed testimony and expanded policy options. The purpose is to forge stronger links between computing professionals and policy makers. The conference includes distinguished keynote speakers, technical panels and workshops and is primarily funded and administered by ACM. The twelve Fellows that will be funded by this grant all have strong interests in public policy issues and several are pursuing graduate degrees in this and related topics.